Operation of the Ocean Bottom Seismic Instrumentation Pool at Woods Hole Oceanographic Institution for the Marine Geosciences Community

Abstract for Collins

This project covers WHOI's participation in the Ocean Bottom Seismic Instrument Pool for four years. WHOI currently operates two different types of ocean-bottom seismometers for the Pool: 50 short-period instruments optimized for both active-source experiments and passive microseismicity monitoring, and 25 broadband seismometers optimized for teleseismic structural studies and earthquake-source investigations.